The Environmental History of the Amazon Rain Forest

The P.I.'s will raise sediment cores from lakes in the Brazilian Amazon. All lakes have been chosen by ground reconnaissance by Brazilian personnel in association with the project, or from shuttle imagery, the prime requirement being that the lakes be divorced from the river system, preferably occupying closed basins. The target is continuous sedimentary sequences spanning the time of the last glaciation in the north. The investigator will reconstruct histories of forest plant populations by pollen and phyolith analysis. The results will be used to test hypotheses relating to: the existence of rain forest refugia during northern glacial maxima, the permanence of rain forest communities, glacial temperature depression in the lowland tropics, rain forest perturbance time-scales and the causes of diversity, the environmental impact of long term (.>6000 yr) human disturbance on the rain forests, and to suggest strategies of wise use or conservation for Amazonia.